Planning Project for Statewide Improvement of Elementary Science in Tennessee

This planning project will involve eight Tennessee universities, the Center of Excellence for Science and Mathematics Education, public schools, and state agencies in the development of a comprehensive systematic state-wide program of improvement in elementary science and associated mathematics for schools throughout the state. The project developed will prepare teachers to implement exemplary science education experiences which are congruent with the emerging NSTA standards and which employ contemporary educational technology. The nature of the cooperative activities among the eight universities and the participating schools and agencies will ensure that the best talent in the state will be available to plan, provide, and evaluate professional development activities for teachers. A variety of innovative delivery techniques including compressed video and satellite will integral features of this project. Planning activities, leading to the submission of a teacher enhancement proposal, will be conducted over a one year period. These planning activities will involve all shareholders in elementary science education in Tennessee. This project partially fulfills one of the major goals of the Tennessee Systemic Initiative.//